REU Site: Advancing Space Sciences

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on space weather, Lunar science and plasma physics and provides a unique opportunity to design, develop and test instrumentation, conduct research, and expand their professional network. The students will develop skills in computer programming, data analysis, science communication, and graduate school preparation through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future challenges of the burgeoning new-space industries